Neogene Tectonic, Climatic and Depositional Evolution of theEastern Basin and Range: Seismic, Tectonic and Model Analyses of the Great Salt Lake, UT

Continental basins resulting from extension are complex, being influenced by the style of normal faulting, reactivation of older features and local climatic conditions. This project will examine in some detail the depositional and structural evolution of the Great Salt Late Basin at the eastern edge of the Basin and Range Province. The work will integrate seismic, stratigraphic and paleoecologic data with three-dimensional basin depositional modeling in order to produce a detailed interpretation of how this basin developed through the Neogene. Results will add to the understanding of the interaction of tectonics, climate and deposition in a continental extensional environment.